Development of an Undergraduate Laser Doppler Anemometry Laboratory

The objective of this laboratory is to introduce laser doppler anemometry to students taking a laser engineering course and courses in fluid dynamics. Two laser doppler anemometer systems will be acquired, one operating in the tracker signal processing mode, the other operating in the counter signal processing mode. In addition, optics will be purchased to operate the anemometer in either the forward or back scatter mode. Experiments can thus be conducted in both air and water.